NGS: WORKSHOP: Travel Support for Young Scientists to attend the EURESCO 2003 Conference on Adv Enviroments and Tools for High Performance Computing, Albufeira (Algarve), Portugal

The EURESCO Conferences (modeled on the Gordon Research Conferences in the
USA) were started in 1990 by the European Science Foundation, with funding from the
European Commission. Each conference consists of a series of five day-long scientific
meetings on one and the same general topic, spread over several years (typically one
meeting every other year). These are discussion meetings at which scientists discuss new
developments in their particular scientific discipline. Participation, by invitation upon
application, is limited to about 100. About 30 per cent of the participants should be young
researchers. In this proposal we are requesting travel support for 15 young USA based
scientists to participate in the 2003 EURESCO conference.